GRC/GRS Batteries: Advances in Characterization, Analysis, Theory and Modeling of Basic Processes March 9-14, 2014, Ventura, CA

This award will provide partial support for the 2014 Gordon Research Conference (GRC) and Gordon Research Seminar (GRS) on Batteries, to be held in Ventura, CA on March 8-9 and March 9-14, 2014, respectively. The majority of the 50 GRS participants are expected to attend the GRC, which will have attendance capped at 200 participants. The GRC will feature two poster sessions and nine technical sessions, including a session dedicated to novel approaches recently taken by junior investigators. All presentations are from invited speakers who represent the leaders in the field.

The technical challenges of understanding and improving current electrochemical energy storage (EES) systems, which include batteries, require a collaborative effort from researchers in many disciplines. There are still many fundamental gaps in understanding the atomic- and molecular-level processes that determine and govern the function, operation, performance limitations, and failure of EES systems. Fundamental knowledge is critically needed to uncover the underlying principles that control these complex and interrelated processes. With this underpinning knowledge, wholly new concepts in materials design can be developed for producing electrodes, electrolytes, and battery cells that are capable of storing higher energy densities and have long cycle lifetimes, at lower cost. The themes of the GRC and GRS on batteries have been chosen to facilitate the exchange of ideas between researchers who work on many aspects of EES. The GRS program will consist of short talks from graduate students and post doctoral research associates, mixed with discussion time and poster sessions. Technical content will be divided into three sessions, dedicated to materials for energy storage, advances in battery characterization methods, and studies of electrochemical interfaces.

The proposed GRS and GRC will provide significant professional development activities for graduate students and post doctoral research associates in the area of electrochemical energy storage. The GRS and GRC will also stimulate new advances in batteries for renewable energy storage through interaction of scientists and engineers who are both new and established in this field.